IUTAM Symposium: "Laminar-Turbulent Transition", to be held in Sedona, Arizona on September, 1999

Abstract

Proposal Title: IUTAM Symposium: "Laminar-Turbulent Transition"
Proposal Number: CTS-9910104
Principal Investigator: William Saric
Institution: Arizona State University

The IUTAM Symposium, to be held in Sedona, Arizona on September 13 - 17, 1999, will provide a significant opportunity to gain a worldwide perspective on the most recent findings and trends in this technically important field. The objectives of the symposium are to deepen the fundamental knowledge of stability and laminar-turbulent transition in three-dimensional and compressible flows by providing a forum for discussions among leading scientists.
Abstract

Proposal Title: IUTAM Symposium: "Laminar-Turbulent Transition"
Proposal Number: CTS-9910104
Principal Investigator: William Saric
Institution: Arizona State University

The IUTAM Symposium, to be held in Sedona, Arizona on September 13 - 17, 1999, will provide a significant opportunity to gain a worldwide perspective on the most recent findings and trends in this technically important field. The objectives of the symposium are to deepen the fundamental knowledge of stability and laminar-turbulent transition in three-dimensional and compressible flows by providing a forum for discussions among leading scientists.